Exploring Chromosomal Structures and Dynamics by Combining Deep Learning with Polymer Physics

This research projects focuses on developing theoretical polymer models that integrate single-cell microscopy and Hi-C maps with generative deep learning AI and polymer physics to describe effective energy landscapes of chromosome structural variability. The PI will create computational frameworks to bridge the gap between data obtained from a population of cells and the heterogeneous 3D conformations observed in chromosomal structures of individual nuclei. These models will be applied to predict how genomic rearrangements such as deletions, duplications, and inversions affect the 3D folding of the genome and potential gene regulation. The PI will develop publicly available computational tools and the training of students at the interface of physics and AI, and their application to genomics. The integration of deep learning with polymer physics will provide the community with new computational tools and theoretical models to interpret genomic datasets. This impact is maximized by the PI’s commitment to open-source software and public data dissemination. Their leading resources that will be developed and maintained include: • ChromVAE Package: We will release the generative deep learning AI framework as a standalone open-source library. This will enable the community to train models on new DNA-tracing datasets and decode novel structures consistent with the experimental input data. • OpenMiChroM and the AMI Force Field.

Intellectual Merit Current data-driven models of the genome primarily rely on inverting Hi-C contact maps that are obtained from a population of cells. While successful, this approach does not fully capture the high structural variability and higher-order moments informed by single-cell imaging. This project will introduce three innovations to overcome these limitations. First, the PI will develop ChromVAE, a variational autoencoder trained on high-resolution DNA-tracing data. This generative AI model will learn a low-dimensional latent space of chromatin folding. Sampling from this continuous manifold will enable them to explore the effective energy landscape of structural states and generate novel conformations consistent with experimental variability. Second, the PI will advance Maximum Entropy polymer modeling by introducing the Associative Memory for Imaging (AMI) force field. Unlike previous methods that constrain simulations to match the average of contact probabilities (first moments), AMI will optimize energy landscapes to reproduce the pairwise distance distributions observed in single-cell microscopy. Finally, the PI will assess the transferability of these physical models by applying them to Genomic Structural Variants (SVs). Using force fields inferred from wild-type data, we will predict the 3D structural changes induced by the genomic rearrangements without additional parameter training. This approach will establish a unified physical framework for predicting how genetic alterations rewire the 3D genome interactions.